Presidential Faculty Fellow

This Presidential Faculty Fellow award will support studies at the interface of engineering and molecular physiology. The research will combine stochastic process analysis with molecular experimentation to understand the mechanisms of calcium channel opening. The award also will support the teaching activities of the investigator. The activities include writing a textbook that systematizes the application of engineering techniques to the understanding of molecular electrophysiology problems and the development of computer simulations of channel behavior.